Collaborative Research: Self-Assembly in Ultrathin Films of Bent-Core Molecules: Experiment, Simulations, and Applications

TECHNICAL SUMMARY
Surface adsorption will be used to create bent-core layers on water via Langmuir techniques, as well as in free-standing films under water, with orientational order over centimeter ranges. These nanometer-thick ordered layers will be studied in situ, transferred to solid substrates (Langmuir/Blodgett and Langmuir/Schaeffer layers), and then used to align bulk bent-core mesophases. These systems will be analyzed with a multiscale approach, in which macroscopic and mesoscopic experiments are correlated with realistic molecular and mesoscopic simulations, where no one approach can cover the whole range of length scales. BLM-like films formed underwater will be stabilized by polymerization and tested as sensors for biological systems. The project will aim to understand the physics underlying these processes, and their sensitivity to small molecular changes and/or external stimuli. The knowledge gained will be used to optimize the self-organization of these molecules for diverse applications. The broader impacts of this project will include the enhanced ability to control surface properties which may lead to improved devices such as sensors, the training of students in a unique multidisciplinary environment, and the development of interdisciplinary teaching materials.
NONTECHNICAL SUMMARY
Throughout both nature and technology, the sensitivity of materials to external stimuli plays critical roles. For example, biological systems make extensive use of this sensitivity in endo- and exocytosis, the processes by which cells take in or expel materials. This sensitivity also lies behind the success of liquid crystals in electro-optical devices and other applications.
This transformative project will use a combined experimental/computational approach to investigate how the properties of bent-core, banana-shaped molecules, are changed by interaction with a surface, and how these changes can be exploited to produce ordered bent-core liquid crystal materials for device applications, such as biosensors and smart biomaterials. More complex, but synthetically controllable molecular structures allow a much broader range of surface properties. Collaborations with international leaders in bent-core synthesis, to implement necessary modifications of the molecular structure of these complex molecules, plays an essential role in this project. Students ranging from high school to graduate level will receive interdisciplinary education in physics, chemistry, and engineering and be exposed to industrial contacts through the unique environment of the Liquid Crystal Institute at Kent State University.